Semianalytic Treatment of Atomic Processes

The proposal focuses on alternative constructions of atomic and molecular eigenfunctions using collective coordinates. The main thrust is to identify the best representations of the molecular complex at small, medium and large distances and to connect these regions in an optimal fashion. The support is entirely for graduate students.